Postdoctoral Research Fellowships in Chemistry

9403136 Leighton Dr. James L. Leighton has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Leighton received his doctoral degree form Harvard University under the supervision of Professor David Evans. Dr. Leighton will continue research at Harvard University under the sponsorship of Professor Eric Jacobsen. His postdoctoral research will focus on the development of methodology for the rapid and efficient evaluation of ligands for asymmetric catalytic processes, specifically the (salen) Mn(III)- catalyzed epoxidation of olefins. Longer term he plans to apply his expertise in asymmetric catalysis to stereoselective rhodium-catalyzed hydroformylation processes. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.